Problems in Bioinorganic and Metal Cluster Chemistry

This project in the Inorganic, Bioinorganic and Organometallic Chemistry Program is in the area of transition metal chemistry. One aim of the project is to design chemical reaction systems which are analogues of enzymatic reactions, and thereby to demonstrate feasible reaction pathways for the function of certain enzymes, such as the nickel-containing enzymes hydrogenase and carbon monoxide dehydrogenase. A second aim is to use metal-sulfur cluster compounds to provide access to new types of materials. The oxotransfer hypothesis for the mechanism of action of a broad class of molybdoenzymes will be examined further by determination of the kinetics and mechanisms of oxo transfer reactions between a wide variety of enzyme substrates and Mo(VI)/Mo(IV) couples. This work will contribute to the development of a thermodynamic scale of oxo transfer reactivity, and a qualitative scale for group transfer reactivity will be developed as well. Analogue reaction systems will be developed for the elucidation of the action of the nickel enzymes hydrogenase and carbon monoxide dehydrogenase. Multiclusters based on hexamolybdenumoctachalcogenide monomers will be synthesized as examples of compounds in the intermediate domain between small molecules and ordered solids, using reductive condensation of Mo3S4 clusters or the bridging of derivatized clusters. Cluster excision reactions, which rupture bridge bonds between clusters in solids and remove them in derivatized forms, will be used to obtain certain clusters, such as Re6S8, which thus far have been synthesized only at high temperatures.